Workshop to Plan an Upper Atmosphere Observatory at an Extremely High Latitude

This is a proposal to carry out a planning workshop for a new upper atmospheric observatory. The centerpiece of this observatory is to be an incoherent scatter radar. The location of the observatory is to be near the magnetic north pole, probably near Resolute Bay on the island of Cornwallis in the Northwest Territories of Canada.***//